Averaging Methods in Coarse Geometry

This proposal consists of two main sections. The first section deals
with coarse geometry and geometric group theory. The PI (together with
D. Fisher and K. Whyte) has recently developed a new technique,
"coarse differentiation", which can be viewed as a sort of
differentiability substitute for quasi-isometries. Of course,
conventional derivatives do not make sense for such maps, since they
are not even defined on small scales; instead we must go to larger and
larger scales. Using this technique, we were able to resolve three
longstanding open problems in the field, namely proving the
quasi-isometric rigidity of the three-dimensional solvable group Sol,
exhibiting a transitive graph which is not quasi-isometric to any
Cayley graph, and showing that the two state and the three state
lamplighter groups are not quasi-isometric. We list some other
potential applications of the method, many of which are to problems
which seemed completely out of reach a year ago.

The second section concerns the interrelated analytic study of
billiards in rational polygons, moduli spaces of abelian and quadratic
differentials, and the dynamics of the SL(2,R) action on these moduli
spaces. The PI also proposes to study related questions about the
geometry of these spaces, such as their volumes and their SL(2,R)
invariant submanifolds. In particular, the PI has found by numerical
experiment some polygons which seem to have competely unexpected
properties, and proposes to study them further.

Some of the coarse geometry in the the first part of the proposal has
unexpected connections to computer science, in particular the
existence of efficient algorithms for finding ways to disconnect a
graph by cutting as few edges as possible. In fact, one of our
proposed problems is taken from this field.

The rational billiard, which is the main subject of study in the
second part of the proposal is important in particular for the
following reason: Some natural phenomena are "chaotic"
(i.e. unpredictable). These are often studied by statistical
methods. Others are "integrable" (i.e. predictable and regular). Other
phenomena fit somewhere in between. The polygonal billiard is one of
the simplest known models of intermediate behavior. As such it has
been studied extensively in physics as well, in particular in
connection to "quantum chaos".